Strengthening Science, Technology, Engineering, and Math Programs of Study

Title: Strengthening Science, Technology, Engineering, and Mathematics Programs of Study

Turtle Mountain Community College

HRD 0222546

PI - Carol Davis

With NSF support, Turtle Mountain Community College (TMCC) will improve its capacity to enroll, retain, and graduate Native American students in STEM disciplines. The use of technology will be emphasized where it can be directly applied within the STEM curriculum and used as a mechanism to enhance teaching and learning. Faculty professional development will also focus on the infusion of technology into the STEM curriculum.

Project goals include strengthening the institution's technological infrastructure and systematically enhancing TMCC's STEM capacity; improving STEM teaching and learning through curriculum development, reform and enhancement; and, broadening student participation in STEM programs through improved outreach, recruitment, retention and graduation. Special emphasis will focus on promoting student success in STEM gatekeeper and bottleneck courses.